Growth Factors, Steroids and Oocyte Meiotic Maturation

This is a Career Advancement Award to support Dr. Racowsky's preliminary studies to investigate specific relationships in the mammalian ovarian follicle among steroidogenic output of granulosa cells, modulation of this output by growth factors, and the stimulation of meiotic resumption in oocytes. She hypothesizes that growth factors paly a central role in the stimulation of meiotic resumption throught their modulation of gonadotropin- regulation of cumulus cell steroidogenesis. It is anticipated that the proposed research activities will lay the groundwork for important contributions to the field of mammalian oocyte maturation, which will significantly enhance Dr. Racowsky's career.